Collaborative Research: Integrating Eocene Shark Paleoecology and Climate Modeling to reveal Southern Ocean Circulation and Antarctic Glaciation

The Earth's climate has changed through time and during the Eocene Epoch (56 to 34 million years ago) there was a transition from 'greenhouse' to 'icehouse' conditions. During the Eocene, a shift to cooler temperatures at high latitudes resulted in the inception of polar glaciation. This in turn affected the environment for living organisms. This project looks to uncover the interaction between biological, oceanographic, and climate systems for the Eocene in Antarctica using chemical analysis of fossil shark teeth collected during past expeditions. The combination of paleontological and geochemical analyses will provide insight to the past ecology and ocean conditions; climate models will be applied to test the role of tectonics, greenhouse gas concentration and ocean circulation on environmental change during this time period. The study contributes to understanding the interaction of increased atmospheric carbon dioxide and ocean circulation. This project also seeks to improve diversity, equity, and inclusion within the geosciences workforce with efforts targeted to undergraduate, graduate, postdoctoral, and early career faculty.

The research goal is to elucidate the processes leading from the Eocene greenhouse to Oligocene icehouse conditions. Previous explanations for this climate shift centers on Antarctica, where tectonic configurations influenced oceanic gateways, ocean circulation reduced heat transport, and/or greenhouse gas declines prompted glaciation. The team will reconstruct watermass, current, and climate fluctuations proximal to the Antarctic Peninsula using geochemical indicators (oxygen and neodymium isotope composition) from fossil shark teeth collected from Seymour Island. The approach builds on previous shark paleontological studies, incorporates geochemical analyses for environmental reconstruction (i.e., temperature gradients and ocean circulation), and tests hypotheses on Earth System dynamics using novel global climate model simulations with geochemical tracers. This project will advance global climate modeling capabilities with experiments that consider Eocene tectonic configuration within isotope-enabled climate model simulations. A comparison of geochemical results from Eocene climate simulations and empirical records of shark teeth will reveal processes and mechanisms central to the Eocene Antarctic climatic shift.